2000 Environmental Sciences: Water Gordon Research Conference

0080465 Storm This grant supports conference costs and travel for participants in the "2000 Environmental Sciences: Water" Gordon Research Conference to be held at Holderness School, Plymouth, New Hampshire, June 25-30, 2000. The Gordon Research Conferences provide informal, off-the-record sessions for researchers to freely discuss their research interests. This conference (Environmental Sciences: Water) has been held every two years since the 1960's. The theme of this year's conference is "Environmental Pressures and Chemical Pathways from the Molecular to the Ecosystem Scale" and has as one of its goals the modification of the "water-centric" focus to include processes and pressures occurring at and across boundaries from the molecular to the ecosystem scales. Participants from the USA, Sweden, Germany, Switzerland, Great Britain and Canada are scheduled to discuss the following topics: (1) Global climatic variability and impacts; (2) Environmental biogeochemistry from the molecular to ecosystem scale; (3) Environmental aquatic chemistry (in honor of James J. Morgan); (4) Modeling contaminant fate in aquatic systems; (5) Biological processes in natural and engineered systems; (6) Environmental biogeochemistry of natural and pollutant organic compounds; (7) Environmental partitioning of organic compounds and (8) Limits to growth. ***